Combinatorial Problems in Algebra, Topology and Geometry

The investigator studies combinatorial problems which arise
in various areas of mathematics. In joint work with R. Guralnick,
the investigator examines branched coverings of Riemann surfaces
whose monodromy groups are the symmetric and alternating groups
S_n and A_n acting on subsets of a fixed size from the n-set. The
main goals of this project are 1) to show that with a small and known list of exceptions, the genus of the covering surface must grow with both the number of sheets of the covering and the number of branch points, and
2) to determine all such coverings for which the genus of the covering
space is at most one.
This project is one of the final steps in a program initiated by
Guralnick and J. Thompson. In addition, the investigator continues his
study of monotone graph and hypergraph properties which arise in V.
Vassiliev's theory of finite type invariants of knots and ornaments.
Finally, the investigator continues his examination of order complexes
of subgroup lattices of finite groups. He attempts to use topological
methods to distinguish intervals in subgroup lattices of finite groups
from arbitrary finite lattices. With V. Welker, he investigates the
topology of the order complexes of subgroup lattices of finite simple
groups.

The investigator's main interests are in combinatorics, which is the
study of discrete, usually finite mathematical objects. Combinatorial
objects arise in various areas of applied mathematics and computer
science, including communications and the theory of algorithmic
complexity. Also, there are complicated nondiscrete mathematical
objects which can be better understood by examining associated
combinatorial objects. The investigator studies combinatorial objects
which arise in this manner.